tRNA Gene Expression in Yeast

High resolution chromosomal footprinting and new genetic approaches are being used to complement the biochemical characterization of tRNA gene transcription in Saccharomyces cerevisiae. The nucleoprotein structures of wild type and selectively altered chromosomal genes will serve as guides for reconstitution and physical characterization of transcription complexes in vitro. At the same time, selections methods requiring reduced tRNA gene promoter strength will be used to obtain mutations in the required trans-acting components. The effects of the mutations on chromosomal complexes and on individual aspects of transcription reconstitution in vitro will be tested. Genes encoding transcription components will be cloned by complementation and characterized. Gene products derived from the clones will be used to faciliatate biochemical analyses. Saccharomyes cerevisiae provides vast amounts of eukaryotic transcription protein factors and also offers a general model of expression and regulation of class III genes. Class III polymerase is responsible for the synthesis of a variety of small RNAs and are the most complex of the eukaryotic enzymes. Information obtained here will probably be appropriate for higher eukaryotic systems.